A Renewal Proposal for the Galileo Program

A program of advanced detector research and development for LIGO is proposed by a multidisciplinary group at Stanford University. The group proposes research in the areas of interferometer configurations, high power lasers and optics, vibration isolation, alignment and interferometer control and advanced materials development for suspensions and core optics. All of these areas of research are important for the upgrade of LIGO that will provide sufficient sensitivity and bandwidth to fully exploit the potential of the LIGO detectors as a gravity wave astronomical observatory. The Stanford group comprises faculty and research scientists in the departments of Applied Physics, Aeronautics and Astronautics, Electrical Engineering and Physics. They include well known experts in laser development, electronics, materials science, optics, optoelectronics and semiconductors. This wideranging research program is viewed by the gravity wave community to be critically important for the success of LIGO.